Novel Dispersion-Division-Multiplexing Technique for Enabling Double the Spectral Efficiency in Transmission and Routing of Photonic and Microwave Networks

It has long been a comfortable fallacy that the optical fiber has infinite bandwidth, and, therefore,
we have bandwidth to burn. With the explosion of multiple-channel communications through the use
wavelength-division-multiplexing (WDM), available bandwidth now takes center stage. When
comparing optical communications with other types of communications, we lag far behind in terms of
spectral efficiency (i.e., bits/Hz) and we are not even close to the Shannon capacity limit. In fact, higher
spectral efficiency is probably the area of least creative activity within the field, and yet it holds the
promise for revolutionary increases in future systems capacity.
One of the technical areas within optical communications that has shown the most bandwidth
waste and has many future potential applications is subcarrier multiplexing (SCM) of many lower-speed
channels on a single wavelength carrier. In SCM, half the data bandwidth is wasted since either:
(i) transmitting double-sideband signals will, in essence, duplicate the data being sent given that each
sideband carries the full information needed for reception, or (ii) transmitting single-sideband signals
requires that the mirror frequencies on the other side of the carrier wave (i.e., where the second sideband
would have been located) remain unoccupied by any other data signals.
Subcarrier multiplexing has many advantages for future optical communications systems,
including: (a) the transmission of many lower-speed digital data signals on a single high-capacity
wavelength, (b) the transmission of many analog-modulated signals, (c) the transmission medium for
networks that accommodate wireless microwave-based optical signals, and (d) the transmission of control
labels for efficient routing in packet-switched networks.
We propose implementing a new multiplexing scheme that enables double the spectral efficiency
for optical systems that use subcarrier multiplexing. The scheme is called dispersion-division-multiplexing
(DDM) and relies on placing two data channels simultaneously in the same frequency space
away from an optical carrrier. For example, one double-sideband data channel is transmitted
conventionally, and a second double-sideband channel is transmitted in the shadow of the first
channel. Shadowing occurs due to the chromatic dispersion of the optical fiber. Due to dispersion, each
of the two double sidebands of a single channel will travel at slightly different speeds. These sidebands
will periodically be out-of-phase will each other relative to the optical carrier wave, thereby canceling
each other and inducing RF power fading (i.e., a nearly complete disappearing of the given channel's
power at a receiver). One channel would be faded when the other channel would be in-phase and have
full power. By using a tunable dispersion-inducing element, a receiver can change the relative phase
between each cannel's two sidebands and thus recover either of the two frequency-co-located channels.
Our research program will investigate unique functionalities, opportunities, and limitations when
using spectrally-efficient dispersion-division-multiplexing that could bear significant fruit in the 5-10
year time frame. The key fundamental features of our systems and networking research program are as
follows. We will:
(a) demonstrate highly-spectrally-efficient DDM for many WDM channels,
(b) demonstrate the utility of DDM for interconnecting nodes in a wireless-based photonic
network,
(c) demonstrate SCM label swapping and routing in a WDM photonic network, and
(d) investigate the fundamental limitations of generating, transmitting, and receiving DDM
channels when considering SNR, extinction ratio, and data bandwidth.
TABLE OF CONTENTS